III: Small: Collaborative Research: Building a Large Multilingual Semantic Network for Text Processing Applications

This project is devoted to building a large multilingual semantic network
through the application of novel techniques for semantic analysis
specifically targeted at the Wikipedia corpus. The driving hypothesis of
the project is that the structure of Wikipedia can be effectively used to
create a highly structured graph of world knowledge in which nodes
correspond to entities and concepts described in Wikipedia, while edges
capture ontological relations such as hypernymy and meronymy. Special
emphasis is given to exploiting the multilingual information available in
Wikipedia in order to improve the performance of each semantic analysis
tool. Significant research effort is therefore aimed at developing tools
for word sense disambiguation, reference resolution and the extraction of
ontological relations that use multilingual reinforcement and the
consistent structure and focused content of Wikipedia to solve these tasks
accurately. An additional research challenge is the effective integration
of inherently noisy evidence from multiple Wikipedia articles in order to
increase the reliability of the overall knowledge encoded in the global
Wikipedia graph. Computing probabilistic confidence values for every piece
of structural information added to the network is an important step in
this integration, and it is also meant to provide increased utility for
downstream applications. The proposed highly structured semantic network
complements existing semantic resources and is expected to have a broad
impact on a wide range of natural language processing applications in need
of large scale world knowledge.

For further information, please see the project website:
http://lit.csci.unt.edu/index.php/Mu.Se.Net